GeoFrame: A Science Workshop on the Lewis & Clark Megaswath (Cascadia-Northern Rockies-Black Hills)

The GeoFrame initiative will produce a coast-to-coast geologic swath across the
conterminous US that addresses major scientific questions about the fundamental processes
that form, stabilize and modify the continental crust, using 4-D (space and time)
visualization of the US crust and uppermost mantle. We envision a ~100 km wide or broader
passive source swath with a significantly reduced spacing from the 70 km spacing utilized
by the USArray Bigfoot deployment. To provide greater crustal resolution, the geologic
initiative would locally add active-source components, as well as include geochronologic
and MT studies, allowing for the full integration of geological and geophysical
approaches. The research areas would proceed in concert with planned USArray deployment
to optimize research outcome and to maximize the outreach potential and country-wide
research opportunities.